Summer Seminars in Workshop Physics

Introductory physics teachers are being helped to develop the computing and laboratory interfacing skills necessary to help their students learn physics by using the computer in the exploration of real world phenomena. The two week seminar is being offered for twenty college and university teachers. Participants remain in contact with one another and with the seminar instructors via a BITNET teleconference during the academic year after the seminar is conducted. The topics include: computer interfacing; use of spreadsheet, and graphing techniques; the application of laboratory interfacing and real time data analysis to lecture demonstrations; and numerical problem solving and modeling. The participants home institutions contribute about 15% additional in providing travel funds for the faculty who are attending the program.